CRI: Collaborative Research : A Community Resource to Support Controlled Experimentation with Program Analysis and Software Testing Techniques

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Collaborative: Next Generation CiteSeer

Lead Proposal: CNS 0454203
PI: Gregg Rothermel
Institution: University of Nebraska-Lincoln

Proposal CNS 0454348
PI: John M. Hatcliff
Institution: Kansas State University

The investigators will create and disseminate a repository of software-related artifacts sufficient to support rigorous controlled experimentation with program analysis and software testing techniques for a broad community of researchers and educators. Software written in the C and Java programming languages along with supporting elements such as multiple versions, faults, test requirements, specifications, test cases, functional behavior specifications, and state-machine models of program behavior will be included. Methods to retrieve program information will be developed. This resource will be an enabling technology for controlled experimentation for program analysis, software testing, and education in software engineering and software testing. Broader impacts of this project include the impact of the resource on enabling a broad range of research and improving capacity for software education in a wide range of institutions.
universities.